Contemporary Issues in Earth Science for Middle Schools

This science teacher development project at North Carolina central University will provide middle school teachers with updated content concepts, materials and curriculum development. Twenty-five middle school teachers (grades 5-8, earth science teachers) will be enrolled in a semester workshop held during the spring semester of the academic year 1988-89. The ten week program will include fourteen three hour evening sessions and four day long Saturday field trips. The workshop will review new concepts, effective ways of incorporating contemporary issues, the use of computer assisted instruction and the importance of field experiences in the curriculum. Major areas of study will focus on four basic units: Introduction to Earth Systems, Atmospheric Systems, Geological System and Hydrological Systems. A field trip is scheduled for each major unit. The formal workshops will emphasize laboratory activities which illustrate the four basic units and can be used, with minimal modifications, in the classroom. During the follow-up phase participants will work under the direction of the workshop staff to implement the workshop materials into existing courses. Upon successful completion of the project, teachers will be awarded six continuing education units or three hours of graduate credit. This project is important to the Teacher Enhancement Program since it addresses an area which has been ignored in our middle school curriculum. it also allows teachers the opportunity to assume ownership of the curricular materials use in their classrooms.